Rhythms in the Suprachiasmatic Nucleus: Role in Mammalian Photoperiodism

Biological time keeping is a fundamental property of living systems. In mammals, these daily physiological and behavioral events, such as sleep/wake cycle, temperature and hormone levels, are regulated by an internal clock located within the suprachiasmatic nucleus of the hypothalamus. A fundamental question is how this neural clock modulates overt rhythmicity in response to input signals, such as light. Recently, Dr. Lynch reported the daily pattern of neuronal activity can be altered by changing exposure to light to resemble that of winter months. These data are very exciting because they suggest that this neural clock is a flexible, integrative structure and not "hard-wired" with regard to time. Using an in vitro preparation and neurophysiological recordings, Dr. Lynch will now determine if the photoperiod-specific pattern is linked to daylength per se, or to the action of light at a particular circadian phase. Moreover, he will determine how hormone factors, especially melatonin, modulate both the firing pattern within the suprachiasmatic nucleus and changes in daily behavior (sleep/wake cycle). Melatonin, a hormone of the pineal gland, is an ideal candidate since it is strongly linked to the control of circadian rhythms. This research will significantly enhance our understanding of the neural mechanisms underlying circadian and photoperiodic events and has important ramifications about the plasticity of the neuronal pacemaker. Findings ways to influence the neural clock may lead to improved treatments for people with sleeping disorders and problems caused by jet lag and shift work.